Photophysics of Clusters Containing Metal Chromophores

This career Advancement Award will enable Dr. Marjatta Lyyra to establish and develop her career in cluster research. She will construct a time of flight mass spectrometry facility capable of gas phase cluster work. She will use the equipment to study bound-bound spectroscopy, the dynamics of photodissociation, and collisional energy transfer. Hydrogen cluster ion systems will be studied in the initial work. Subsequently fullerenenes which are hosts for metal ions will be investigated. %%% This award will enable a productive scientist to build scientific equipment which can measure properties that will lead to a better understanding of chemical reactions. The systems she will study are important to the development of new kinds of materials which could have electrical and catalytic properties of industrial importance.